HigherEd 2.0: Transforming STEM Undergraduate Education

Engineering Mechanical (56)

This project is developing, deploying, assessing and disseminating HigherEd 2.0 within second year mechanics courses. HigherEd 2.0 is a highly collaborative, technology driven environment allowing students to create, manage and evaluate their own learning materials. The project is emphasizing student creation and peer-review of learning materials. They are creating a collaborative learning environment through the use of podcasting, blogging, wikis, and other asynchronous Web 2.0 tools. The project is directly addressing the on-going need for improved learning outcomes in the engineering mechanics curriculum in key topic areas such as free body diagrams, vector mechanics, and Newtonian motion.

The student learning outcomes are being assessed using nationally-normed datasets. The results are being widely disseminated through faculty workshops, research monographs and scholarly journals on engineering education.